Discrete Conformal Geometry, 1998 Barrett Memorial Lectures

Abstract Stephenson This award is to partially support a workshop to be held in Knoxville, Tennessee, June 8 thought June 12, 1998. It will bring together a group of researchers and students in what can loosely be characterized as discrete conformal geometry - a mixture of topology, analysis, and combinatorics.